SGER: Cost Effective Retrofit for Blast Mitigation

Abstract
The proposed research will investigate the feasibility of using Wire Mesh
Reinforced Inorganic Matrix (WMRIM) as blast-resistant retrofits for unreinforced
masonry walls. The proposed work is part of full-scale blast tests based on
Glass Fiber Reinforced Polymer (GFRP) retrofits. Through full-scale blast testing, we
will experimentally validate a methodology for designing WMRIM retrofits as a cost-
effective solution to blast resistant retrofits. The results of this research will enable
retrofit techniques to be designed based on simple static tests on structural
components rather than more expensive blast tests on full-scale structures.
The hypothesis of the research is that the initial blast wave causes significant
damage to masonry walls. This phenomenon and the subsequent stiffening of the wall due to arch action need to be characterized to adequately model blast effect on
structures. The key elements of this research are:
i) Wire-mesh Reinforced Inorganic Matrix (WMRIM
ii) Static Flexure Tests and
iii) Blast Pressure Response Model
Broader Impact
Approximately 40% of the budget will leverage planned full-scale blast tests by
EMRTC to obtain test data for our WMRP retrofits. Over 70% of the remaining
budget for this research will directly support graduate student training. The University
of New Mexico is a minority institution (Hispanic and American Indian). The PI has
always had a significant ( 40%) number of minority graduate students in his research
program. The full-scale explosive test facilities are located in Socorro, 1 hour drive
from the University of New Mexico campus. This synergy couldallow the university to build a strong reputation in the design and testing of hardened
(blast-resistant) structures and provide needed information for blast resistant design.